Interactions of Muons, Kaons, Antiprotons, and Sigma Hyperons (Physics)

The activities to be carried out include: a study of very rare kaon decays (Brookhaven AGS experiment 791), a program of muon diffusion and capture (PSI experiment R-87-08), and a new muonium-antimuonium conversion experiment (LAMPF experiment 1073). In addition, design studies for a parity violation experiment at CEBAF will be carried out.